Mathematics: Keystone for Success

Haskell Indian Nations University proposes a five year Tribal College/University Program,
.Mathematics: Keystone for Success. to increase the number of American Indian students
entering STEM fields. It will do so by building the capacity of Haskell Indian Nations
University to complement the knowledge of incoming students and to deliver rigorous
mathematics/science instruction.

Elements of the proposal required to transform Haskell.s mathematics and mathematically rich
disciplines from pure service areas include: 1) Enlarging the existing and highly successful Ross
Hall Learning Laboratory: The Laboratory is successful in swiftly moving students from
precollege mathematics to College Algebra. Its expansion would place all students in this
excellent and supportive environment and release Mathematics faculty to develop and teach
higher-level mathematics courses. 2) Providing faculty development: The faculty require
updating through taking classes, being involved in in-house workshops and attending
conferences. 3) Develop mathematics and mathematically rich science courses: A series of
classes to provide a .comprehensive. minor in mathematics at Haskell will be developed.
Complementary curricula will be developed in pre-engineering, in Geographical Information
Systems (GIS) and Biology/Environmental Sciences; and courses to serve Liberal Arts students
will be created. 4) Incorporate Technologies into Haskell courses: The use of a variety of
technologies will update course presentation and allow students to explore technological
advances in mathematics. 5) Expanded career related experiences for students: Students will be
provided academic year and summer research and internship experiences that will arouse their
interest in pursuing their education in mathematics or mathematically rich disciplines. 6)
Enhanced infrastructure including recruitment, assessment, retention and makes sophisticated
tracking of student progress possible.